SGER: Computer Simulation of Electro-Osmosis in Solutions

CTS - 9617405 Sohail Murad University of Illinois Chicago ABSTRACT The project is an exploratory investigation of electro-osmosis in non-ionic and ionic solutions using computer simulation. The primary objective of the research is to use molecular dynamics and Monte-Carlo simulations to study electro-osmosis at the molecular level. Recently developed atomistic models will be employed in the simulation to describe a wide range of membrane pore size distribution. The project may lead to an understanding of the factors that control electro-osmosis. It will resolve the question of whether electro-osmosis occurs in non-ionic solutions. The results will be relevant to improving the separation efficiency of membrane-based processes.